Kent-Purdue Minisymposium on Financial Mathematics

This award provides participant support costs for the third Kent-Purdue Mini-Symposium on Financial Mathematics, to be held on April 21-22, 2007. The conference will expose participants to an array of cutting-edge research topics in financial mathematics, while promoting the bidirectional nature of the interactions between Mathematics and Finance.

The conference features three distinguished speakers in quantitative finance, who will deliver one-hour talks, as well as five invited 25-minute presentations. A poster session will be held for graduate students and postdocs.